The Nature of the Mid-Archean Geomagnetic Field

Paleomagnetic and paleointensity data of late Archean/early Proterozoic
age (approximately 2.7 to 2.5 million years old) show many of the
hallmarks of the geomagnetic field of the last 200 million years. Our
picture of the field prior to this time, however, is unclear because
even the best-preserved rocks have likely seen prolonged low-grade
metamorphic conditions. A new CO2 laser/superconducting quantum interference
device (SQUID) magnetometer approach affords the opportunity to analyze
for the first time paleomagnetic and paleointensity signatures of single,
oriented silicate grains. These grains contain minute magnetic inclusions
that should preserve original magnetizations. A joint laboratory and field
plan will be pursued, focused on the analysis of Archean plutonic rocks of
the Kaapvaal Craton (southern Africa).

The definition of the nature of the Archean geomagnetic field
will be of interest to a broad range of scientists studying
the early Earth and inner core, as well as those involved
in numerical and experimental simulations of planetary dynamos. The work
will contribute to scientific infrastructure, through the development of
the CO2 laser/SQUID magnetometer system, and to education. Undergraduate
and graduate students will be involved in the full range of activities
associated with the project, including field studies, equipment
development and laboratory analyses.